Women in Engineering, Science and Technology (WEST)

This project, Women in Engineering, Science and Technology (WEST), established at New Jersey Institute of Technology, will facilitate the transfer of women, upon completion of their community college curricula, from 19 New Jersey community colleges to engineering, science and technology programs at four year colleges and universities. During the first year, the WEST office will work with some of the 14 community colleges with which articulation agreements already exist. Special efforts will be made with urban-based colleges enrolling a high percentage of minority women After the first year, WEST will expand its efforts to other community colleges in the state. One goal is to recruit at least 200 women per year to the project through career days and seminars. Evaluation and assessment of project outcomes will be determined by: - the percent increase of women enrolled in engineering, science & technology programs at community colleges who transfer to 4-year colleges at the end of Spring 1992 semester. - the percent increase of community college women with undeclared majors who choose engineering, science and technology majors at the end of the Fall 1991 and Spring 1992 semesters. - pre and post surveys to measure attitudes toward engineering, science and technology.